Interaction Analysis for Integrated Embedded Systems

Rinard, Martin
CCR-0209075

The project will investigate a new program analysis, interaction
analysis, and a new set of implementation techniques to support
future generations of embedded systems. Instead of executing low-level
code whose sole responsibility is to control a specific piece of
hardware, these future systems will be built in a layered fashion,
with the core control software surrounded by outer layers of software
that integrate the core software and the device that it controls into
a larger integrated, distributed system of devices and users.
The key challenge associated with realizing this vision is the need to
effectively apply implementation mechanisms that enable the outer
layers to share the hardware device without disrupting the actions of
the time and safety critical core code. The economics of developing
large software systems will ensure that most of the outer layers will
consist of standard, off-the-shelf software components from the world
of laptop, desktop, and server computing. The outer layer software
will therefore have been developed to use implementation mechanisms
that are unsuited for use in time-critical control
software. Nevertheless, the core software and the outer layer software
will need to interact. With standard implementation mechanisms,
interactions mediated by objects shared with outer layers could easily
lead to unacceptable delays and a loss of real-time control in the
core.
The focus of this research is the development and investigation of new
interaction analysis algorithms that extracts the interaction patterns
between the core and outer layers, then uses these patterns to
classify objects into several categories. Each category can then use
an implementation mechanism appropriate for how it is used in the
system. The end result is a system in which the outer layers and core
software effectively cooperate without a loss of safety or
predictability.
The envisioned analysis has several properties that will make it
suitable for this application. First, it is capable of extracting a
meaningful result with an analysis of only part of the program.
Second, it can effectively analyze the multithreaded programs that
come from the integration of the outer layers and the core. Third, the
partial analysis is goal-driven to extract the required information
with an analysis of only those parts of the program required to obtain
the result.